Evolution of the Immune Response: Induced Humoral Immunity in Insects

The overall goals of this research are to study the immune-like responses of the American cockroach, Periplaneta americana, and to compare the cells and substances mediating its defense mechanisms with their counterparts in the vertebrate immune response. The cockroach is an excellent experimental animal for these studies for several reasons. It is relatively long-lived; it is easily maintained in the laboratory; it can be bred in captivity to produce inbred strains of animals for genetic studies; and previous results suggest that the roach possesses an inducible adaptive humoral immune response. The current goals of this project are: to identify the factor(s) mediating the humoral response by various protein separation techniques in combination with an in vivo assay, to develop a sensitive and quantitative in vitro assay for the humoral factor(s), to generate specific rabbit polyclonal antibodies against certain hemolymph proteins found in immune roaches; and to purify the humoral factor(s) by affinity chromatography. Knowledge of the complex mechanisms governing the adaptive immune response of vertebrates has grown tremendously in the past few decades. As yet, however, little is known about the analogous defense mechanisms in invertebrates. The results of these studies will provide valuable basic knowledge not only about the immune-like defense mechanisms of the cockroach, which may suggest biologically rational methods of control of this insect pest, but also will enhance our general understanding of the evolution of immune function.